Investigating Internet2: A New Channel for Science Education

This proof-of-concept project provides a test of the use of Internet2 as an infrastructure for professional development. The goal is to develop and test prototype resources for professional development that will be delivered through the Internet2. The project supports inquiry-based science practice at the middle school level using STC, FOSS and Insights curricular materials as its content framework. The use of Internet2 enables high quality access to educational resources, which may include large data sets, real-time video interactivity and high definition video on demand. These capabilities are well-suited for supporting inquiry-based classroom practices.